Long-Term Temporal Variability of Pelagic Bird Abundance in the California Current

This award provides for three year's support to establish a time series of abundance and spatial pattern of pelagic birds in the California Current System (CCS). The study involves a sampling regime that has been operational for 40 years and is already funded by other agencies: the cruises of the California Cooperative Oceanic Fisheries Investigations (CalCOFI). Data has already been collected for birds on 12 sequential CalCOFI cruises (four per year) beginning in May 1987. Thus, the study will yield a continuous time series of six years length. The intent is to continue the project for a much longer time. This inexpensive project provides an ideal opportunity to study spatial and temporal variation of bird populations at a range of spatial scales meaningful to their life histories. The primary objectives are to calculate a mean and variance in time and space of bird abundance and dispersion based on the time series collected between 1987-1993. Once the long-term patterns have been determined, the magnitude of variation at different temporal scales will be examined. Long term patterns of bird abundance which emerge will be compared to patterns in the physical and biological data collected simultaneously on the cruises.